The Design of a Polymeric Piezoelectric Actuator for and Anthropomorphic End Effector

The primary objective of this Engineering Initiation Award research project is to design, build and test an actuator for a dexterous light weight mechanism which is to be used as an end effector for a robot. This end effector will be an anthropomorphic hand similar in design concept to the UTAH/MIT hand except that the actuators will be fabricated from polymeric piezoelectric materials. In order to achieve the above, the following research objectives have been established for this project: (1) Using the UTAH/MIT and Hitachi hands as a guide for finger and wrist design, determine the actuating forces and displacements that are required to carry reasonable pay loads, (2) Design an actuator with the required displacement and load carrying capacity determined above using a piezoelectric material such as poly(vinylidene fluoride). Included in the design phase will be the development of the theory for analysis and control of such an actuator, (3) Build the actuator and determine its performance. Included in the performance evaluation will be the determination of displacements, forces, response times, and life, and (4) Develop the plan for a research program to design, build, and test a dexterous hand using polymeric piezoelectric actuators. An actuating system using a polymeric piezoelectric material is potentially more lightweight, compact, sensitive, compliant, and responsive than present systems which are based on pneumatic and heat sensitive devices. Since polymers are both flexible and capable of being molded into complex shapes, the actuating system can be placed closer to the anthropomorphic end effector resulting in shorter tendons (force transmission elements) and more positive control. In addition, since a piezoelectric actuator is an electrical device, digital computer control using digital to analog devices are more easily developed and lighter in weight than electrical to pneumatic or electrical to temperature based devices that are required on current anthropomorphic hands. A successful design for robot applications will also have application to biomedical devices such as artificial limbs.